A Spectroscopic Study of Cool Metal-Poor Dwarf Stars

9315372 Leggett Low mass, very cool stars and cool white dwarf stars are extremely common but are poorly understood. With the support of this Planning Grant, spectral and photometric observations of such stars will be made. These data will improve our understanding of the physics of the atmospheres of these stars. ***